International Conference on Special Functions

DMS-9815552

By providing air travel funds this group award will support twelve
U.S. researchers participation in the International Workshop on
Special Functions: Asymptotics, Harmonic Analysis, and Mathematical
Physics, City University of Hong Kong, June 21-25, 1999. This
conference is designed to provide a forum for experts in asymptotics,
classical special functions, combinatorics, harmonic analysis, quantum
groups, mathematical physics, differential equations, and orthogonal
polynomials to exchange ideas and to acquaint participants with the
most recent developments in these areas. The goal of recent work in
asymptotics is to derive expansions whose error terms are exponentially
small. Such expansions give much greater accuracy than the classical
Poincare' type expansions and have larger regions of validity. The
harmonic analysis aspects of special functions involve root systems
and representations of quantum and classical matrix groups. In the
last few years, such methods have been used to find new results about
special functions (both standard and q-type) of several variables.
For example, these methods were used to prove conjectures of Macdonald
that came from an algebraic combinatorics setting and to construct
exact solutions of quantum many-body systems of Calogero-Moser-
Sutherland type.

Special functions form a large family of functions of fundamental
importance in Mathematics. For instance, they appear in the modelling
of any physical phenomena where there is some degree of symmetry, as in
the vibrations of a circular drum. The conference program includes invited
one-hour plenary lectures, several parallel sessions of half-hour presentations, and round-table discussions of outstanding problems and future research directions.
Approximately eighty participants are expected. Researchers from many
countries will be invited as speakers including relatively large
delegations from the U.S., Canada, Netherlands, Japan, and Australia.
This international workshop will facilitate discussions between applied
mathematicians and more theoretical researchers so that applied problems
amenable to solutions via special functions can be identified and the
new mathematical tools can be utilized in applications. The conference
will be held in cooperation with the Society for Industrial and Applied
Mathematics (SIAM) including SIAM's Activity Group on Orthogonal
Polynomials and Special Functions and the newly chartered South East
Asia Section.